Workshop cost and travel grants for Large Complex Network Workshop

This project supports workshop travel and dissemination of workshop results for an upcoming workshop on complex engineered networks. Complex engineered networks are everywhere: power grids, Internet, transportation networks, and others. They are being used more than ever before, and yet our understanding about them remains limited. The Internet, wireless networks, and online social networks have shaped the modern society. Increasingly, critical, engineered, large-scale systems, such as transportation networks, power grids, and oil and gas distribution systems, are being enhanced and optimized by state monitoring and dynamic controls through sensor and cyber mechanisms. These networks have evolved into complex systems with behaviors and characteristics that are beyond the characterizations and predictions possible by the traditional modeling, analysis and design approaches.

The workshop will bring together experts from the academia, national laboratories, government, and industries to assess the recent trends, state-of-the-art, and impending challenges in modeling, predicting and controlling the behaviors of these complex networks to gain better performance, efficiency, and robustness. The objectives of the workshop include:

- Identify transformative research challenges and directions in the field of large-scale, complex engineered networks and interconnected physical systems of sensors and instruments, such as the power grid and communications networks.
- Assess the state-of-the-art, future trends, and important opportunities and challenges in the theory, design, analysis, tools, and applications of complex interconnected systems research in government, industry, and academia.
- Identify strategies for inter-agency collaborations at the federal level to enable different communities to carry out joint efforts, leverage ongoing activities, accelerate new discoveries, and enable technology transfers to societal impact in the research field of complex networks and interconnected systems.

Broader Impact: Complex systems occupy critical roles in our society but their performance across a full set of operating conditions is usually at best poorly understood. Formal mathematical analysis may give insight into the operation of system components or into the operation of simplified system models, but is seldom capable of exactly modeling actual code. Testing of complex systems often misses unexpected and undesirable behaviors resulting from cross-system interactions. Program module (unit) testing is effective in checking for gross programming errors across a specified set of inputs but often fails for inputs generated by these behaviors. Dynamic whole system behaviors such as oscillations, spreading overloads, and cascading security failures are not discoverable via unit testing. Exhaustive testing is often either not possible or prohibitively expensive in terms of time or resources. Better understanding of how to couple mathematical analysis and testing for the purposes of rapid and rigorous characterization of complex systems would have broad societal impact. The workshop is a joint undertaking between NSF, DoE and AFOSR via the Networking and Information Technology Research and Development (NITRD) Program and the Large Scale Networking (LSN) working subcommittee.